Postdoctoral Research Fellowships in Chemistry

Dr. Jennifer A. Griffiths has been awarded an NSF Postdoctoral Research Fellowship in Chemistry. Dr. Griffiths received the doctoral degree from the University of California at Los Angeles under the supervision of Professor Mostafa A. El-Sayed. Dr. Griffiths will continue research at the University of Massachusetts at Amherst under the sponsorship of Professor David Tirrell. The postdoctoral research will focus on the immobilization of proteins and model protein systems, such as helical polypeptide polymers, on solid surfaces. The goal is to develop surface bound monolayers of monodisperse helical polymer systems in which there is 3-dimensional control of the protein conformation and assembly at the interface through selective placement of a cysteine residue in the helix. The helical systems utilized are cysteine analogs of polyglutamic acid polymer generated by biological synthesis. The work leads to new materials and applications for biopolymeric systems in interfacial chemistry. The Postdoctoral Research Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph. D.s and attract them into meaningful careers in contemporary chemical research and teaching.